Toward a Complete Kinetic Description of Ionosphere Magnetosphere Coupling

The PI is developing a complete kinetic description of ionospheric plasma outflows from the collision-dominated region to the collisionless magnetospheric plasma, providing continuous self-consistent coupling processes between the different components of ionospheric plasmas along open and closed geomagnetic field lines. This continued research, important for defining and understanding plasma physics manifested in phenomena of the coupled ionosphere-magnetosphere system, helps to develop a complete picture of near-Earth space.